Charter Meeting for Society for Research on Biological Rhythms; Wild Dunes Convention Center; Charleston, SC; May 14, 1988

The award will support part of the expense for travel by graduate students to present papers at the Meeting of the Society for Research on Biological Rhythms.